Gene Expression During Nodule Initiation in Phaseolus Vulgaris

This is a Research Opportunities for Women Career Advancement Award. The PI will use this award to study the development of root nodules in the Phaseolus vulgaris (edible bean) - Rhizobium phaseoli symbiosis.